Conference: Organization of 1989 Picosecond Electronics andOptoelectronics Topical Meeting, Salt Lake City, UT, March 6-8, 1989

This proposal is in support of the 1989 Picosecond Electronics and Optoelectronics Topical Meeting, to be held at Salt Lake City, Utah, March 6-8, 1989, under the co-sponsorship of the Optical Society of America and the IEEE Lasers and Electro-Optics Society. This meeting, which is held every second year, will bring together researchers in the areas of electronics and optoelectronics to discuss the physics and technology of picosecond solid state devices and their applications to ultrafast measurement techniques. The selected topic areas include ultrafast optoelectronic devices, semiconductor device physics, ultra-wideband electronic devices, superconducting- and cryoelectronics, device characterization and fabrication technology, and highspeed circuits and signal processing. This is an important area of current technology, and there will be a strong contingent of outstanding U.S. and international researchers present at the meeting.